Optical Communications Laboratory

9452459 Pariser The objective of this project is to provide experimental apparatus (fiber optic communication's) for the students in the electronic communication classes. The course Electronic Communication (CM 101), which teaches analog and digital communications, and the second course which is an elective course, Modern Communication Systems (CM 102). As the industry moves toward fiber optics, we have a responsibility to train our students in this technology. This training would provide a major improvement for our students. They would now have the opportunity to see experimental verification of the theory of optical communications.